Collaborative Research: RI: Structural Skeletons for Robust Scene Understanding

Artificial intelligence (AI) systems can create highly detailed digital reconstructions of the physical world, but they often struggle to understand basic physical rules, such as whether a stack of objects will fall over or if a chair is stable. This project advances the progress of science by creating AI that understands the physical world through common sense reasoning. Instead of relying on dense, pixel-by-pixel details, this project develops systems that learn a scene's underlying "structural skeleton," which is a simplified map of its core geometric shapes. This approach makes AI agents much more robust and efficient when interacting with real-world environments. By enabling machines to reason about physical stability and causes and effects, this project will lead to safer and more reliable autonomous systems, such as industrial robots and assistive devices that help the elderly or individuals with disabilities in their homes. Additionally, the efficiency of this skeletal representation will improve augmented and virtual reality experiences on mobile devices. The project also supports workforce development by training graduate and undergraduate students at the University of Louisville and Penn State University, fostering an interdisciplinary partnership, and integrating the research findings into university courses.

The technical goal of this project is to pioneer a learning paradigm that frames perception as a problem of structural abstraction rather than dense reconstruction. The team of researchers will advance this goal through three synergistic thrusts. First, the investigators will develop a pipeline to extract a semantically rich structural skeleton directly from noisy, single-view images by fitting geometric primitives, starting with planes and cylinders. This involves robust primitive extraction from monocular depth estimates and grounding semantic predictions using large vision language models. Second, the project will design a physics-informed reasoning module using graph neural networks that operate on the extracted scene skeleton. This module will simulate physical interactions to predict a distribution over causal outcomes, allowing the system to distinguish between stable, precarious, and sliding or tipping configurations. Third, the researchers will develop a generative framework that completes partial structural skeletons and models structural grammars. This generative approach enables rigorous validation of the physical understanding of AI by comparing predicted responses to structural interventions against ground-truth physics simulations. All code, models, and benchmark datasets produced during this project will be made publicly available to accelerate further research.